Phylogenetic Analysis of Salmonid Fishes Using rDNA

This project will investigate the genetic relationships between the North American, European, and Asian trouts and salmon. This will be done by obtaining data on the DNA sequence of the ribosomal RNA genes. Using these data, a tree will be constructed showing the relationships between the various species. This tree will be compared and combined with trees obtained from analysis of morphological traits and chromosomal variation in these fishes.